Collaborative Research: Reconstructing the Impacts of Holocene Sea Ice History in the Bering Sea with Interdisciplinary Datasets

This project will use interdisciplinary approaches to develop a record of sea ice dynamics in the southern Bering Sea over 5,000 years. The presence or absence of sea ice in the Bering Sea impacts national security, the American fishing industry, and shipping lanes. The impacts of these changes, however, are poorly known given the short historical record. This project will integrate geological, cultural, archaeological, and environmental evidence for sea ice dynamics and wildlife responses in the southern Bering Sea over the last 5000 years. This project will provide STEM workforce training for students at University of Oklahoma, Boston University, Idaho State University, and Woods Hole Oceanographic Institute and will collaborate with local communities in the eastern Aleutian Islands. This project addresses four NSF priorities: AI and Machine Learning, Biotechnology & Bio-innovation, Advanced Observing and Data Systems, and STEM workforce training.

To understand the impacts of changing sea ice on Bering Sea ecosystems, the project will conduct sedimentary DNA (sedaDNA) analysis of new sediment cores in the eastern Aleutian Islands of Alaska, combined with zooarchaeological, stable isotope, and ancient DNA analyses of marine fauna. The collection of long, high-resolution sediment cores near archaeological sites provides an unprecedented opportunity to pair archaeological data with a new local paleoenvironmental record. This high-resolution record will be used to reconstruct periods of sea ice expansion and retreat, storminess, and changes in local marine fauna, and to explore how people adapted to accommodate periods of change. Critically, we will synthesize environmental, faunal, and human data by engaging in discussions with Aleutian residents to combine the scientific findings with local knowledge and interpretation.